Partial Support for the Department of Energy National Teacher Enhancement Project

9253358 Bowen The National Teacher Enhancement Project (NTEP) is a collaborative five-year effort of the Department of Energy (DOE) national laboratories to improve science education in grades K-8. The project is designed to create cadres of lead teachers who will serve as role models and mentors for their colleagues and who will be district leaders in systemic reform initiatives. Several additional laboratories will be included in the current effort. The laboratories will optimize their impact on science and mathematics education by strengthening their growing collective efforts and by providing regional teachers with access to resources through the DOE national network. During this project over 240 teachers will receive direct training at the laboratories, and each of them will conduct inservice programs for other teachers in their schools, this impacting a large number of teachers nationally. This proposal is appropriate for teacher enhancement because it is a leadership project which will bring elementary teachers into the science community, provide extensive networking among teachers and the National Laboratories, and leverage effective synergy among the participating Laboratories through its truly collaborative design. It is also consistent with FCCSET and other national efforts to coordinate, facilitate, and strengthen efforts to improve science education. Non-NSF cost-sharing is approximately 120% of the amount requested from NSF. ***